Stable Isotopes as Transmembrane Tracers

The purpose of the proposed investigation is two-fold: 1) to study the regulation of magnesium ions in excitable cells by measuring the fluxes of stable isotopes in and out of these cells, and in the process, 2) to develop and perfect a general technique for measuring fluxes and flux parameters by the use of stable isotopes as tracers. The technique of mass spectrometry will allow calculation of the fluxes through determination of the shifts in the ratios of the different stable isotopes of magnesium to each other. At present there is a great lack of quantitative information on magnesium ion fluxes in excitable and other cells, particularly concerning how magnesium movements are coupled to energy sources. Part of the reason for the deficiency in information stems from the difficulty previous workers have had in obtaining the only radioactive tracer of magnesium, namely, the short-lived isotope 28Mg; thus, the use of isotopes that do not decay will permit continuous and uninterrupted research. Another major advantage of using this approach is that bidirectional fluxes of two or more ionic species can be simultaneously measured in the same experiment. Successful completion of all aspects of this project will make available badly needed new knowledge of the direct and indirect energy sources affecting magnesium movements, the calculation of the stoichiometries of any magnesium counter-exchange involved, the definition of the possible role of the membrane potential in magnesium counter-ion transport, and an understanding of how these factors may work in concert to maintain physiological levels of intracellular magnesium ion. This proposed study should serve as a model for flux studies of other ions as well. One of the important mechanisms by which cells receive signals and transduce external signals to intracellular biochemical messages involves the movement of ions across the cell's external membrane or from one compartment to another within the cell. Studies of these processes often require the measurement of ion fluxes, and ion fluxes are usually measured by the use of radioactive isotopes as tracers. This research will develop and apply an alternative approach to the measurement of transmembrane cation fluxes. This method employs stable isotopes as tracers and uses mass spectrometry to measure shifts in isotope ratios of a given element in a sample from a cell or the cell's external medium. These measurements, when coupled with measurements of the concentration of that element in a sample (e.g. by atomic absorption spectroscopy) make it possible to determine fluxes in and out of cells. The technique will be applied to the study of magnesium fluxes. Considerable evidence suggests that magnesium movements may play important physiological roles, but radio- active isotopes of magnesium are very difficult to work with and very expensive, so few measurements have been made of magnesium fluxes. This research will provide a new method for studying ion fluxes without radioactive isotopes, and new information on the physiological movements of magnesium in cells.***//